Solar-Wind Magnetosphere Interactions - Theory and Data Analysis

This project is for the study of solar wind interactions with the magnetosphere/ionosphere system. The methodology includes theoretical modeling and analysis of data obtained from experiments aboard satellites. Innovative data analysis techniques are proposed. New additional features are proposed in the model that will lend to better understanding of the complex solar-terrestrial system.